U.S.-Korea Cooperative Science: Navier-Stokes Equations and Related Topics

0090112
Lewis

This award supports Professor John L. Lewis, Department of Mathematics, University of Kentucky, to conduct collaborative research with Professor Hi Jun Choe of the Korea Advanced Institute of Science and Technology in the area of nonlinear partial differential equations. This joint study will investigate the regularity and uniqueness of solutions to the Navier-Stokes equations. Because many physical problems can be described in the language of partial differential equations, theoretical study of such equations can lead to a variety of technological advances. Exchange visits by Professors Lewis and Choe to each others departments will allow them to combine complementary skills and expertise in addressing this important mathematical problem.